CISE Research Instrumentation: Application Oriented Parallel Computing & Scientific Computing Research on a Commodity Parallel System

9729877 Aluru, Srinivas New Mexico State University CISE Research Instrumentation: Application Oriented Parallel Computing and Scientific Computing Research on a Commodity Parallel System This research instrumentation serves primarily as an experimental testbed for the following research projects:- Scalable Parallelization of Spatial Data Structures and Applications, - Parallel Methods for Protein Accessible Surface Area Calculations,- Development of Parallel Smoothed Particle Hydrodynamics (SPH) Methods for Simulating Transient Electromagnetic Problems,- Direct Solution of Large Sparse Irregular Systems of Equations on Massively Parallel Computers, and- Performance Measurement in Distributed Systems. The instrumentation grant funds the purchase of a 32-processor workstation cluster built from commodity microprocessors and networking components. The equipment is to be used to set up a Parallel Computing Laboratory in the Department of Computer Science at New Mexico State University. The workstation cluster will be used as a distributed memory parallel computer dedicated to support application-driven parallel computing and high-performance scientific computing research on low-cost commodity-based systems. Results from this research are to be made available in the form of libraries, tools and applications software for researchers interested in low-cost commodity-based parallel computing. The equipment also supports an interdisciplinary educational program in computational science.